Minority Undergraduate/Graduate Student Technical Presentation Experience at the 2011 NOBCChE Annual Technology Conference

The National Organization for the Professional Advancement of Black Chemists and Chemical Engineers (NOBCChE) requests funds to support the attendance of sixteen (16) undergraduate and graduate students from the departments of chemistry and chemical engineering, and related sciences at selected Historically Black Colleges & Universities (HBCU) and Minority Institutions (Minority Institutions include Hispanic Serving Institutions and Tribal Colleges) to attend and participate in technical symposia at the 38th NOBCChE Annual Technology Conference in Houston, TX from April 18 - April 22, 2011.

The benefits to the students are:
1) Opportunities to present their original research to a forum composed of industry, government and academic peers.
2) Opportunities to meet colleagues at other HBCU/MI and majority Institutions to develop research collaborations.
3) Engage representatives from majority academic institutions to explore opportunities to pursue graduate degrees in the aforementioned disciplines.
4) To meet and engage accomplished minorities in the Scientific and engineering fields.
5) Exposing minority students and students of HBCU/MI to new ideas and innovations in an atmosphere with accomplished minorities in STEM